Mathematical Sciences: K-theory and Triangulated Categories

The investigator intends to consider ramifications and applications of a result he has recently proved, namely that a K- theory can be defined for any triangulated category in such a way that the K-theory of the bounded derived category of an abelian category A agrees with the K-theory of A. Although this project is highly algebraic, one motivation lies in its potential for reducing geometric information to a subject for calculation by perfecting one of the principal algebraic tools used for this purpose. The nature of the geometric information involved is the crux of the difficulty. While questions about lengths, areas, angles, volumes, and so forth virtually cry out to be reduced to calculations, it is far different with what are known as topological properties of geometric objects. These are properties such as connectedness (being all in one piece), knottedness, having no holes, and so forth. All systematic study of such properties, for example, how to tell whether two geometric objects really differ in respect to one of these properties or are only superficially different, or how to classify the variety of differences that can occur, all these have only truly been comprehended and mastered when they have been reduced to matters of calculation. Algebraic K-theory has been developed into a major tool for this purpose, and the interplay between the algebra and the topology involved remains a fascinating subject.